Making Sense of the Census: The Cosmological Population of Fast Radio Bursts

The universe contains a wealth of exotic sources that emit brief flashes detectable over vast distances. Among the most enigmatic of these are fast radio bursts (FRBs), which originate billions of light years from Earth. While the exact nature of FRBs is still uncertain, multiple lines of evidence point toward an origin in highly magnetized neutron stars formed during the supernova explosions of massive stars. Research into FRBs is important because it leads to a greater understanding of the universe's large-scale structure and the physics of extreme cosmic environments. This project will engage graduate and undergraduate students at West Virginia University in the analysis of an expansive new census of thousands of FRBs. By deploying sophisticated computer models and AI methods, the team of scientists will attack many of the key unsolved issues in our understanding of FRBs. Specifically, the team will investigate whether all FRBs come from the same types of objects in the universe and will study the distribution of their properties, including brightnesses and distances. In addition, an open-source FRB simulator will be developed as a tool for both professional astronomers and interested members of the public. Broader impacts include the training of two graduate students in data science and machine learning skills, the integration of FRB science into an existing national outreach program, and the production of a new planetarium documentary that will be free to use for outreach purposes.

This project aims to better characterize the underlying cosmological population of FRBs. Utilizing the recently released catalog from the Canadian Hydrogen Intensity Mapping Experiment (CHIME), which contains over 4,500 events across a five-year observing baseline, this work will execute four tightly coupled projects over a three-year period. First, using a recently released CHIME/FRB selection function, a machine-learning framework employing Simulation-Based Inference will be used to evaluate the viability of repeater-only population models versus mixed populations, accounting for a realistic distribution of burst rates and repeat burst luminosities. Second, a comprehensive phenomenological characterization of pulse morphology will be conducted to place the first major empirical constraints on FRB radiation beam sizes and geometries. Third, the project will pioneer an iterative Monte Carlo approach to bypass arbitrary functional assumptions and solve directly for the spatial and luminosity functions dictated by the data. Finally, these findings will be integrated to deliver a freely available survey simulation tool for the broader astronomical community to predict yields for upcoming and emerging facilities.